BE/CBC: Continental, Landscape and Ecosystem Scale Fluxes of Atmospheric Carbon Dioxide (CO2) and Carbon Monoxide (CO) Gases

This project will improve understanding of terrestrial carbon sinks by linking process-level biological information obtained for individual plants or ecosystems over short time scales with observations and models that characterize the large spatial domain and long time scales of regional and global concern. The P.I. will obtain comprehensive observations and use archived data integrated across several spatial and temporal scales, including tower and aircraft flux measurements and forest biomass inventories, to develop an integrated ecosystem-atmosphere model that captures both slow and fast ecosystem processes. The combined results will provide quantitative constraints to the carbon budget at regional scales. The integrated model will be optimized using atmospheric and biospheric data that quantitatively link properties of the terrestrial biosphere-atmosphere system with the underlying fundamental biological and physical processes. The project has an outreach program that includes an interactive CD-ROM with information on the carbon cycle and climate change and a module for having students conduct hypothesis testing using project data.